Arabidopsis Molecular Genetics Course

9318309 Grodzicker Funding is requested for a Cold Spring Harbor summer course in Arabidopsis molecular genetics. The use of Arabidopsis as a model plant for the course reflects the current research interests of many US and international laboratories. The course is designed to fulfill a growing need within the plant science community for training in this area. The intention is (1) to teach state of the art molecular techniques to scientists who are already involved in research with plants so that they can apply these technologies to their own future research and (2) to teach scientists who are familiar with microbial, animal or plant systems about current research in plant biology using Arabidopsis as the model plant system. The course consists of a rigorous lecture series, a hands-on laboratory and informal discussions. Speakers will provide both an in- depth discussion of their work and an overview of their specialty. The laboratory sessions provide intensive training in modern techniques in plant biology. It also introduces approaches used in yeast that have the potential to be utilized for the advancement of Arabidopsis molecular genetics. ***